UMEB: Educating a New Generation of Environmental Professionals

The 1-year UMEB renewal will support four current students for their second year of research. The students are currently engaged in active research programs in laboratories with an emphasis on environmental biology, including molecular systematics of endangered species, community ecology, environmental physiology, and insect behavior. We will continue active monitoring of their progress and mentoring experiences. In addition to their research activities, the students will participate in a seminar series that will expose them to career opportunities and ethical issues in environmental science, and will participate in short field trips. During their final semester, they will complete their projects, analyse data, and write up their results for publication and presentation at a scientific meeting. Assessment tools will be used to determine the extent of their understanding of the scientific method, critical thinking, and development of self confidence. The students will then have the opportunity to move on to other research opportunities within the University.